Conference: Rice Spring School on Electron Correlation and Topology

This award is co-funded by the Condensed Matter and Materials Theory, and the Condensed Matter Physics programs of the Division of Materials Research. It will support the attendance of early-career researchers and students to the 2025 instance of the Rice Spring School on Electron Correlation and Topology. The school will bring together leading theorist and experimentalist experts in cutting-edge areas of condensed matter physics to present pedagogical lectures, which will provide graduate students and postdoctoral researchers with a comprehensive understanding of exciting developments and foster new insights into the frontiers of research in quantum materials. The school will also provide a platform for students and early-career researchers to take on active roles as organizers, lecturers, presenters, and panel discussion leaders.